Molecular Basis of Self-Incompatibility in Petunia

IBN-9982659
PI: Teh-hui Kao

Petunia inflata possesses gametophytic type self-incompatibility which is
controlled by a polymorphic locus, the S-locus. Matching of S-alleles
carried by the pollen and pistil results in inhibition of pollen tube
growth in the style. A polymorphic gene at the S-locus, termed the S-RNase
gene, that controls pistil function in SI has been identified. However, the
gene that controls pollen function in SI interactions, termed the pollen
S-gene, has not been identified.

The goal of this proposed project is to use a functional genomic approach
to identify the pollen S-gene of P. inflata. Obj. I is to use 14 cDNA
markers for the S-locus and the S-RNase gene as probes to isolate clones
from an S2S2 BAC library already contsructed. Obj. II is to construct a BAC
library of the S1S1 genotype and use the same probes employed in Obj. I to
isolate positive clones. Obj. III is to characterize all the BAC clones
isolated in Obj. I and II by pulse-field gel electrophoresis and
fluorescence in situ hybridization to determine any overlap between them,
to order them at the S-locus, and to estimate the size of the gaps between
them. Additional clones will be isolated from both BAC libraries to cover
as extensively as possible the entire S-locus. Obj. IV is to introduce all
the BAC clones separately into P. inflata plants of S1S2 genotype to
determine whether any of them contains the pollen S-gene. If a BAC clone
contains the pollen S2-gene, a quarter of the pollen grains produced by a
transgenic plant will carry the pollen S1-allele and the pollen
S2-transgene, and they will be compatible with S1S2 pistils due to
competitive interaction. Transgenic plants that have become
self-compatible will be studied to identify the transgene that is
responsible for the phenotype. The function of the candidate(s) for the
pollen S-gene will be further ascertained by loss-of-function experiments.

Accomplishment of this proposed research will advance the understanding of
an RNase-based self/non-self recognition mechanism. The BAC clones isolated
can be used for studying the functions of additional S-locus genes, and for
comparative study of the S-locus of two different S-haplotypes, S1 and S2.
On the practical side, one can explore the possibility of restoring the SI
trait to self-compatible cultivated species to facilitate hybrid seed
production. If successful, this will have a very important agronomic
impact.